OPAAL: Simulation and Optimization of Casting and Extrusion Processes

Process design engineers must simultaneously control the macroscopic and microscopic properties of products to meet the demands of today's competitive marketplace. Control over material properties (such as precipitate structure, grain size, and residual stress) in cast and extruded components is as essential to product quality as is control over the product geometry. Ultimately, product and process design must be treated as a single coupled problem, because the processes that determine a product's shape also determine its material properties. This research initiative establishes new collaborations among mathematicians, engineers, and computer scientists to enable multiscale simulations of the complex, nonlinear behavior that underlies process and product design. Specifically, the investigators and their colleagues model microstructural development associated with dendritic growth in casting processes and with recrystallization and the evolution of grain-boundary precipitates in extrusion and quench processes. These multiscale simulation problems within the context of design optimization lead to very large computational requirements for which parallel solution strategies are essential. The representation of complex, time-varying geometries --- especially those with evolving topology --- is another significant challenge. The investigators use a variety of new methods from analysis, computational geometry and computer science to address these issues. They develop advanced error estimates to drive "smart" mesh generators and adaptive procedures, emphasizing new geometric algorithms backed by rigorous mathematical analysis to ensure accuracy and reliability. They design new programming environments as well as compile-time and run-time code optimizers to produce portable, high performance parallel codes. Gridless level set methods, space-time finite element models, and new methods from computational geometry address the geometric challenges. The investigators explore new solution techniques for large-scale problems and develop parallel nonlinear programming strategies and advanced design sensitivity analysis methods to optimize processing conditions and tool geometries.

This project advances new computational technology to predict and optimize microstructural material properties via macroscopic process controls. This work has the potential for tremendous economic impact in the manufacturing sector. New high-performance materials for civilian and defense applications, lower cost and more environmentally friendly manufacturing processes, improved quality control, and the ability to reduce the time to market via virtual process and product prototyping all become possible. The new simulation and design tools help engineers and process designers to move beyond current trial-and-error design approaches that are expensive and often ineffective. In particular, the prospect of practical, easy-to-use tools for optimal process design promotes the increased use of these techniques in industry. The new processing capabilities generated by this effort could lead to entirely new product classes, in addition to substantial improvements in existing product lines. Close collaboration with industrial scientists and engineers at major U.S. manufacturing companies is an essential component of this work, so effective and timely technology transfer to and from industry is assured. The interdisciplinary structure that underlies this effort, involving new collaborations between mathematicians, engineers and computer scientists, is itself a novel aspect of the research that has potential for significant impact on the culture of scientific research at U.S. universities. It generates a new educational model for Ph.D. students and postdocs that provides the multi-disciplinary training required for scientific and technical leadership in the coming century.

Funding for this activity will be provided by the Division of Mathematical Sciences, the MPS Office of Multidisciplinary Activities, and by DARPA.